Interactive Visualization in Materials Analysis for Innovation in Education

9810155
Mayer

This project based at Arizona State University (ASU) will develop an interactive educational software system that uses real-time 3D computer graphics and auditory feedback to simulate materials analysis with energetic beam (photons or charged particles). The focus will be on atom excitation and de-excitation processes leading to x-ray emission; the software will be used to help students understand the atomic level processes behind analytical techniques such as x-ray fluorescence and electron microprobe analysis. The system will also include a digital movie illustrating atomic x-ray emission processes that will be distributed over the Internet.

The visualization and interactivity of the multimedia project will assist students in understanding radiation-matter interactions. The project fits in the integrated vision of remote-controlled analysis that ASU is trying to realize.